Probing the Physics of the Hierarchy Problem

A two-pronged program in theoretical elementary particle physics and
cosmology will study the source of mass for elementary particles and the
source of energy which now dominates the universe. For the former, studies
will be made to determine how data from high-energy collider facilities
can be used to unravel the way in which the Higgs boson interacts with
matter. From this we will learn whether there is more than one Higgs boson
and how the Higgs boson(s) generate masses for other particles. On the
latter front, there is mounting evidence that most of the energy in the
universe has a unique and unknown form. Models will be built to explain
this data and will be tested against the growing body of data. The twin
questions of what gives particles their mass and what gives the universe
its mass are fundmentally important and will be at the center of
theoretical and experimental work for the coming decade.